Computational Grid Optimization in Engineering

Grid generation, redistribution and adaptive refinement have emerged as important current aspects of computational engineering. With the rapid evolution of advanced supercomputers, large-scale 2-D and 3-D problems can now be addressed with appropriate grid resolution. To use the associated finite element or finite difference methods reliably and efficiently, we need improved grid-generation schemes and algorithms for grid redistribution and refinement. This research project is directed towards this problem of grid optimization using both redistribution and refinement strategies. The problem is approached from the viewpoint of nonlinear programming problems in optimization theory. The focus of the research will be the development of approximate methods and algorithms as well as techniques for acceleration of the grid optimization procedures including parallel processing on subdomains. The key technical issues are: grid redistribution and optimization, local adaptive grid refinement and remeshing schemes for moving grids. The institutional support is adequate and the investigation is a senior researcher with significant contributions in computational engineering.